Collaborative Research: Compiler-Supported Simulation of Scalable Applications for Wide-Area Distributed Computing Systems

Wide-area distributed computing systems represent the future of scientific
and commercial computing. Such systems will enable a wide range of futuristic
applications with the potential for enormous economic and social impact
applications such as distributed multimedia services, Web-based collaboration,
distributed supercomputing, and teleimmersion. Before this vision can be
realized, however, extensive research will be required in virtually all
aspects of software system design, implementation, and evaluation.

Discrete-event simulation has been an essential tool for the design and
analysis of traditional computational systems and applications. Realistic
simulation of applications executing on wide-area distributed systems,
however, is a challenging task because of the scale of the software, hardware
and network subsystems that must be simulated. Nevertheless, the intricacy of
these components and their complex, closed-loop interactions require the
components and their interactions to be modeled in sufficient detail to
appropriately predict their impact on overall system performance.
In recent work, the PIs have collaboratively obtained some exciting but
preliminary results showing that specific compiler information can greatly
enhance the efficiency and scalability of simulation of message-passing
programs. For instance, it was shown that simulation of a scalable ASCI kernel
benchmark application called SWEEP3D executing on up to 128 processors could
be simulated faster than real-time by using parallel simulations together
with the type of compiler optimizations that are the subject of this proposal.
Also, the compiler-optimized simulation can evaluate very large data
sets on thousands of processors: it was possible to simulate the performance
of a 40 million-problem size Sweep3D for up to 10,000 processors. There are
potentially a number of other strategies to dramatically improve simulation
scalability and performance by using compiler information, none of which have
been studied so far. A comprehensive program of research is required to
develop their potential and evaluate their impact on simulation of real world
applications.

The focus of the current proposal is to develop compiler-based techniques for
improving the efficiency of parallel discrete event simulation, and to use
these techniques to evaluate application and system software performance for
wide-area distributed systems. There are three key components to this
proposal:
1. To explore a range of compiler-supported strategies for highly efficient
simulation of dynamic, large-scale systems and applications.
2. To implement and evaluate these strategies for wide-area distributed
systems, by extending our existing compiler and simulation infrastructure.
This requires addressing additional challenges raised by the dynamic nature
of these systems and the lack of well-defined metrics to measure effective
application level performance in such environments.
3. To evaluate the effectiveness of these strategies for real world
distributed
applications that have already been developed, such as a distributed
multimedia
application and distributed versions of tightly coupled applications such as
Sweep3D and the NAS parallel benchmarks.

The proposed research program builds on a collaboration of several years
between
the PIs' research groups, and brings together key strengths in parallel
simulation of large-scale parallel programs, parallel simulation of wide-area
networks, and in parallelizing compilers and their use for supporting
performance evaluation.

This program of research also complements the ongoing software efforts for
wide-area systems that are aimed at developing operating system services
(e.g., Globus, Legion, and WebOS) and programming environments (e.g., Legion,
Globe, and GrADS). As such, the proposed research program represents an
essential third leg of software support for the development and deployment
of successful wide-area distributed systems.